Scholarships in Science, Technology, Engineering, and Mathematics (S-STEM)

This project is awarding scholarships to academically talented and financially needy students and is supporting the scholars through a variety of structures and programs. Women and students from underrepresented groups are being especially targeted for support. Building on a successful LSAMP program in the state, student scholars are enrolled in engineering and are being recruited from high schools as well as community colleges in the state. The project is providing individualized monitoring, workshops, disciplinary and professional seminars, tutoring, and research opportunities to scholars. There is significant industry and institutional support for the program.